Application of Distributed Adaptive Mesh Refinement Techniques to Problems Involving Diffusion

A number of physical problems involve localized phenomena
that move in time, such as fluid fronts, interfaces and shocks.
Often, these phenomena are not captured well by finite difference
methods on uniform grids. The investigators work on three
classes of such problems: flow in porous media, particularly
chemically enhanced aquifer remediation; thin film flow with
fluid fronts due to vanishing diffusive fluxes; and excitable
media, particularly the modeling of the propagation of electrical
impulses in the heart. All three of these problems involve
diffusion; the diffusion can be nonlinear, subdiffusive or
superdiffusive. The investigators develop efficient multilevel
iterative methods and adaptive mesh refinement tools to solve
these problems on parallel processor machines.
The power of computers has dramatically increased since
they were introduced a half century ago, and this improvement in
performance continues at a breathtaking pace. Nonetheless,
although the public is generally unaware of this, the
computational resources required to simulate many phenomena, like
the weather, greatly exceed those currently available. One way
to obtain a lot of computer power is to arrange for many
computers to work simultaneously on a problem. However, it is a
daunting task to program these computers so that they will
correctly produce the desired simulation in a timely fashion. In
this work, the investigators develop effective methods to use
many computers working together to simulate the flow of
contaminants in the ground, the behavior of thin films, and the
electrophysiology of the heart. Groundwater contamination is a
significant environmental problem. Thin film problems arise in
lubrication and in manufacturing processes. A fundamental
understanding of the electrical and muscular behavior of the
heart is important and could lead to better control of the
mechanisms of arrhythmia.